Conference: The 5th International Conference on the Science of Science and Innovation

The science of science and innovation is an interdisciplinary field that uses quantitative and computational methods to understand how scientific research is conducted, communicated, and translated into societal impact. We are holding the 5th annual ICSSI at the University of Colorado Boulder from June 29 to July 1, 2026, with a pre-conference Open Data Hackathon on June 28. The conference is organized around three themes that are unified by the rapid emergence of artificial intelligence: (1) the future of science policy, (2) the future infrastructure of the scientific ecosystem, and (3) the scientific workforce.

ICSSI 2026 will advance the science of science and innovation by convening researchers and practitioners to present, debate, and synthesize cutting-edge work on the dynamics of scientific discovery, communication, and impact. The conference’s three thematic panels—on scientific infrastructure, the scientific workforce, and science policy—address foundational questions in the field at a time of rapid change driven by AI. The presentations and poster will showcase the latest methods and findings from across the discipline. The pre-conference Open Data Hackathon will produce shareable community data resources while training the next generation of scholars in AI-augmented research workflows. By bringing together researchers from disparate fields—spanning economics, sociology, computer science, information science, management, and more—with policymakers and funders at multiple levels, ICSSI catalyzes new research directions and collaborations that would not emerge from any single disciplinary venue.